China/USA/Japan Joint Chemical Engineering Conference; October 11-13, 2005; Beijing, China

ABSTRACT - 0508744
University of Michigan

This proposal seeks funds to provide travel grant awards to U.S. speakers, authors
of papers, and young academic participants to the China/USA/Japan Joint Chemical
Engineering Conference, to be held in Beijing, China, on October 11-13, 2005.
This conference is a combination of the Fourth USA/China Chemical Engineering
Conference and the Third China/Japan Chemical Engineering Symposium. The
conference is sponsored by the American Institute of Chemical Engineers (AIChE) and
its Chinese and Japanese counterparts, the Chemical Industry and Engineering Society of
China (CIESC) and the Society of Chemical Engineers, Japan (SCEJ). The theme of the
conference is: Chemical Engineering in Sustainable Development and Emerging
Technologies.
The purpose of the Conference is to provide a forum for U.S. Chemical Engineers
to meet their counterparts in China and Japan to discuss the latest advancements,
exchange research ideas and discuss opportunities for collaboration. Global issues such as
new energy sources and clean fuels will be among the focal points of discussion that will
be beneficial to the U.S. participants. The direct communication will facilitate
development and expansion of the potentially vast markets in China for U.S. chemical
products.
The proposed budget of $35,000 will provide for approximately 35 partial travel
grant awards to U.S. speakers, authors of papers, and young academic participants at the
Conference. Travel awards will be made based on the following considerations: (1)
scientific or technological merit of the speaker/participant; (2) professional qualifications
relative to age and position; (3) institutional and geographical distribution. All awards
will be made in full compliance with the Civil Rights Acts of 1964. NSF travel policies
with respect to U.S. air carriers will be followed.